Reaction, Transport, and Structure Evolution Phenomena in the Densification of Fibrous Substrates

Low-density materials exhibiting high strength and an ability to hold up under highly strenuous conditions of stress, temperature, pressure, etc. are needed in many high- temperature aerospace and energy applications. Fiber- reinforced ceramic matrix composites are materials that satisfy the requirements of low density and acceptable toughness because fiber reinforcement usually leads to strengthening of the homogeneous isotropic material that forms the matrix of the composite. Chemical vapor infiltration (CVI) is a method that can be used to fabricate ceramic matrix composites without damaging the preform of fibers or whiskers used for reinforcement. During this process the gaseous reactants, or the products of their decomposition in the gas phase that surrounds the fibrous preform, are transported through the pores and form a ceramic matrix throughout the preform by chemical vapor deposition (CVD). CVI leads to products of very good mechanical properties, can produce objects of complex shape and large size, and can be used for many ceramic-ceramic composites including oxides and nonoxides. In addition to composite fabrications, CVI can be used to partially densify membranes made from ceramic or other materials and in this way produce selectively permeable membranes for special applications (such as separations). Theoretical and experimental work is planned to study the fundamentals of the interaction of transport processes (heat and mass), reaction, and structure evolution during densification of porous preforms by CVI. The deposition of silicon carbide from methyltrichlorosilane will be used as the model system in these studies. The experimental work will include deposition experiments using porous and nonporous substrates, film and pore structure characterization, and mass transport coefficient measurements. The deposition experiments will be carried out in a hot-wall reactor, operating in a gravimetric arrangement, while structure characterization will be carried out using microscopy, Raman, XRD, electron microprobe, gas adsorption and mercury porosimetry. Theoretical work will involve the development of models that summarize the relative importance of the various factors that occur during CVI. In addition to contributing to the elucidation of the fundamentals of CVI, this project will also generate information for any application involving transport in media consisting of fibrous structures.***//